REU Sites - Research Experience for Undergraduates in Computer Vision

EIA -0097738
Shah, Mubarak
Niels J da Vitoria Lobo

REU Sites: Research Experience for Undergraduates in Computer Vision

This project represents a continuation of a Research Experience for Undergraduates site
which has operated successfully for the past {\bf thirteen} years. Approximately {\bf one hundred thirty} undergraduate students from several institutions in Florida and outside Florida have participated in this
program. The key distinctive elements of our approach are (1) to have a full calendar year experience planned for the participants, so that they have time to follow a substantial project through to completion, (2) to present each participant with several possible project topics, so that they can feel they have chosen a project which is most interesting to them, (3) to immerse the participants in the general research environment
essentially as if they were graduate students, by having them meet with their faculty advisor once each week
to discuss their project, participate in the weekly research group meetings, attend research presentations and meet with visiting researchers, and (4) to follow through over the year by working with the students
to write a technical report on their project, to prepare for the GREs and to apply to graduate programs.
In past years, a large fraction of our REU participants have been able to prepare a paper for submission to a conference, have the paper accepted and then attend the conference to present the paper. Several past participants have even accomplished substantial enough research to also result in journal publications.
Many of our past participants are now pursuing graduate studies at various institutions, and some are now occupying faculty positions.